Exploring Student Interactions in Small Groups in Belonging-Oriented Undergraduate Mathematics Classrooms

The implementation of active learning approaches in STEM undergraduate courses has significantly increased over the past few decades. Classrooms traditionally dominated by lectures have been reworked into environments where students actively participate in discussions, problem-solving, group work, and hands-on projects. Improvement in students' overall academic achievement in these environments has consistently been reported, but researchers have found that some students encounter barriers that significantly limit their participation and impact their learning experiences in these courses. Understanding these obstacles and how these students interact with peers and instructors in small-group settings is crucial for developing more effective educational practices. Despite this need, no rigorous studies have yet examined these interactions in undergraduate mathematics classrooms. Addressing this research gap is crucial for the STEM curriculum, considering the pivotal role these courses play in the STEM pipeline and their strong impact on student retention in STEM disciplines. This project will use surveys, interviews, and classroom observations to conduct a thorough analysis of the interactions among students working in small groups in undergraduate mathematics classrooms. This analysis will provide foundational knowledge about the relationship between active learning instruction and effective learning environments that engage all students.

The primary goal of the research is to explore the experience of students and instructors during group activities in these classrooms; closely analyzing their interactions and characterizing learning opportunities (OtLs) within groups. The project team will work with instructors who incorporate teaching practices focused on fostering the engagement of all students in the context of teaching semester-long introductory undergraduate mathematics courses. Specifically, the research will examine the extent to which moving into more central roles of participation is available to all students within small-group social ecologies, carefully attending to the influence of classroom norms and belonging-oriented instruction on these participation shifts. The analysis will center on group interactions and OtLs before, during, and after the participation of instructors in coaching and professional learning opportunities focused on social ecologies and promoting students’ sense of belonging in mathematics. The research will be conducted at two institutions serving different regions of the United States, both of which have had a sustained commitment to active learning in introductory mathematics. The use of two sites will enable the exploration of how OtLs may vary among students in different institutional contexts with established instructional practices. The project will aim to capture comprehensive rich data on students' and instructors’ perceptions of group interactions through surveys, interviews, and classroom observations centered on small groups. The project will seek to provide four major contributions to STEM education research. First, is to advance foundational knowledge about the relationship between active learning instructional approaches and effective learning environments that engage all students. Second, is to broaden explanatory knowledge about students’ OTLs and experiences of belonging in active learning undergraduate mathematics classrooms. Third, is to increase understanding of how students experience sociohistorical and socio-mathematical classroom norms, and how those experiences are associated with OtLs. Fourth, and finally, is to extend core understanding of instructional practices that support effective learning environments in undergraduate mathematics classes. This project is supported by NSF's EDU Core Research (ECR) program. The ECR program emphasizes fundamental STEM education research that generates foundational knowledge in the field. Investments are made in critical areas that are essential, broad and enduring: STEM learning and STEM learning environments, broadening participation in STEM, and STEM workforce development.